Self-Affine Tiles, Wavelets and Other Related Topics

ABSTRACT DMS-9706793 Wang Wang proposes research in self-affine tiles and tiling by inflation, dilation equations in several variables, and certain problems concerning mathematical quasicrystals. Two scale dilation equations arise in a wide variety of applications, including orthonormal wavelet bases and subdivision schemes for computer generation of curves and surfaces. Self-affine tiles are closely related to two scale dilation equations in the sense that the characteristic function of any self-affine tile satisfies a two scale dilation equation. While the study of two scale dilation equations in higher dimensions has always attracted attention, the study of selfaffine tiling has gained considerable momentum recently due to its applications in constructing orthonormal wavelets and the growing interests in aperiodic tiling and quasicrystals. Wang intends to study non separable wavelet bases in higher dimensions, self-affine tiles, and mathematical quasicrystals. Orthonormal wavelets in dimension two or more are extremely important for numerous applications, especially in signal processing and image compression. In the later case, for instance, a wavelet transform is applied to a given image and compression is then carried on the transform. The wavelet used will be two dimensional, as an image. Up to now, we have not had a good method to construct these wavelet other than by multiplying two one dimensional wavelets. These wavelets lead to subtle artifacts in the decompressed images such as jagged diagonal lines and slight blackness. It is believed that those artifacts can be reduced by using genuinely two dimensional wavelets. Wang has outlined certain approach which may potentially lead to the construction of this kind of wavelet. Recently Schechtman and others have formed metal alloys that have aperiodic atomic structures, generating great interests among chemists, physicists, and mathematicians in the study of quasicrystal . Wang proposes to study this quasicrystals from the mathematical point of view.